Dynamical Systems in Biology

Smith
0107160
The investigator develops mathematical methods that exploit
the special properties inherent in dynamical systems arising in
the biological sciences and applies them to specific problems.
The main focus is on the long-term behavior of the dynamics after
transient effects have disappeared. The work on biofilms focuses
on systems of advection-diffusion equations coupled to ordinary
differential equations with coupled nonlinear boundary conditions
in piecewise-smooth domains. Aside from well-posedness and the
existence of multiple steady states, which are nontrivial
questions, the important biological information comes from key
eigenvalues for associated nonstandard eigenvalue problems and
their dependence on parameters. Both mathematical analysis and
numerical simulations are required for an understanding. The work
on the paradox of the plankton focuses on the classical model of
n-species exploitative competition for k essential
(non-substitutable) nutrients. If n is larger than k there can be
no equilibrium coexistence of all n species so one must seek
oscillatory coexistence. The investigator exploits certain
heteroclinic structures (cycles of equilibria) that arise
naturally in such systems in order to seek periodic coexistence
solutions. The theory of competitive and cooperative systems can
play a significant role. Abstract dynamical systems theory comes
into play in the work on robust persistence. Specifically,
understanding chain recurrent sets and Morse decompositions of
the boundary dynamics (where one or more species are absent) are
key to showing that persistence for a dynamical system is robust
to perturbation of that system or of its parameters.
Dynamical systems that arise naturally in many areas in the
biological sciences often have special features not shared by
systems arising in the physical sciences. Broadly speaking, the
investigator develops mathematical methods that exploit these
special properties and applies them to specific problems. The
main focus is on the long-term behavior of the dynamics after
transient effects have disappeared. Progress in this area can
help to answer important biological questions that are subject to
mathematical modeling, such as whether an infectious disease
becomes endemic in a population or becomes extinct, or which
species in an ecosystem can survive and which will become
extinct. A substantial effort is devoted to understanding the
dynamics of mathematical models in three areas of the
biosciences. The first is microbial growth and competition in
environmental settings where biofilms may form on surfaces.
Biofilms are of great importance in the health sciences and food
industry where their formation typically results in negative
outcomes. They are responsible for food and water contamination,
dental caries and periodontal disease, and the contamination of
medical implants. The investigator studies under what conditions
biofilms may form and what bacterial densities can be expected.
The second is a fundamental issue in population biology, the
so-called "paradox of the plankton": why can so many plankton
species (and, more generally, species of other taxa) be supported
by so few limiting resources? The investigator provides
mathematically rigorous results for the existence of oscillatory
coexistence states of the relevant mathematical models when the
number of species exceeds the number of resources, as is typical
in natural environments. The third is a more robust theory of
persistence (also called permanence) for dynamical systems
arising in population dynamics. In its simplest form, this theory
seeks not to determine the global behavior of solutions of a
dynamical system representing interacting populations but rather
to answer the more basic question: What species are present at
the end of the day? While past research in this area has
primarily ignored the fact that population models are only
approximately correct, the investigator seeks to provide answers
to the basic question that hold true for all small perturbations
of the model equations.